Topics in Differential Geometry and Mathematical Physics

ABSTRACT DMS - 0204002.

The PI's first program in this proposal is concerned with the
geometry of Hermitian or hyper-Hermitian connections with totally
skew torsions. The results will be applicable to an investigation
in quantum mechanical black holes. The PI's second program is to
study the complex deformation theory and Hermitian geometry of
nilmanifolds. Parallel to the algebraic analysis on the classical
and extended moduli, he and his collaborators investigatge the
geometry on these spaces from the viewpoint of special holonomy
and symplectic structures. A senior participant proposes to
analyse the structures of compact quaternionic Kaehler manifolds
and the A-hat genus of non-spin manifolds with finite second
homotopy. Both issues are tackled through an analysis of the
rigidity of elliptic genus. Through the theory of elliptic genus,
the two proposers will jointly calculate a Hilbert polynomial
relevant to holomorphic contact structures or rational curves
invariant with respect to a holomorphic automorphisms.

The proposed projects here are enabled by theoretical physicists'
and mathematicians' knowledge on field theory, complex deformation
theory and differential topology of fixed point sets. All proposed
projects are intended to address issues relevant to current
physcial or mathematical issues. The PI's projects will address a
type of geometry less known to mathematicians than to physicists.
The results will increase mathematicians' knowledge on Hermitian
geometry and directly addresses issues to theoretical physcists'
concerns. The senior participant's project addresses a long-
standing conjecture in the field of holonomy. The central tool in
this project is a novel differntial topological mechinary for
studying fixed point sets with respect to group actions. The
investigators joint project will combine their expertise to
extract topological information on a class ofspace central in
algebraic geometry.